Problems in Strong and Weak Interactions

9420615 Sakita This proposal "Problems in Strong and Weak Interactions" deals with attempts to define a consistent superstring theory which incorporates in one framework quantum versions of all know interactions including gravity. It also books for links between these field theoretical models of strong interactions and certain properties of electrons moving in two dimensions under the influence of a magnetic field. ***